Teichmuller Theory and Low-Dimensional Geometric Variational Problems

Abstract

Award: DMS-0505603
Principal Investigator: Michael Wolf

These projects concentrate on problems concerning complete
minimal surfaces in Euclidean three-space, harmonic maps onto the
hyperbolic plane, and projective structures on Riemann surfaces.
The principal investigator, working with D. Hoffman and M. Weber,
hopes to prove the existence of embedded helicoids of arbitrary
genus, following up on their existence result in genus one but
pursuing a different approach that is already known to simplify
the genus-one argument. A basic uniqueness question on minimal
surfaces is also going to be studied: In how many ways can one
desingularize the intersection of two planes? The principal
investigator has studied harmonic maps onto the hyperbolic plane
for several years, leading to a natural conjecture on extensions
of quasi-symmetries of the circle to the hyperbolic disk. The
planned work on projective structures on Riemann surfaces will be
pursued jointly with a postdoctoral fellow, David Dumas, and aims
to develop fine asymptotics for such structures.

A minimal surface is the mathematical idealization of a soap
bubble spanning a wire. A stable soap bubble ordinarily assumes
the least area of all possible surfaces spanning that wire, and
the mathematical statement of the fact that varying the surface
must increase its area translates into a partial differential
equation. Versions of these problems have been studied intensely
since the 19th century and before, for both physical and
geometric reasons. The helicoid referred to above is a surface
shaped like a corkscrew or parking ramp, and the genus-one
version of the helicoid could be described as a parking ramp with
an airshaft -- some interesting and appealing pictures of these
and other minimal surfaces are available on M. Weber's Web pages,
http://www.indiana/edu/~minimal.